Investigation of the Chemical Mechanism for NO Removal from Combustion Products by Cyanuric Acid

A research program will be conducted to investigate the chemical mechanism for NO removal in combustion products by cyanuric acid. Information about the kinetic parameters and products of several critical gas-phase reactions, viz NCO + NO, O2 and O, will be obtained in a series of shock tube experiments using laser-based diagnostics. The kinetic data in the temperature range of 2000 to 3000 K will be incorporated into a detailed chemical model which can be used to investigate ways to improve process performance. The injection of crystalline cyanuric acid particles into hot combustion products to initiate a reaction sequence which can remove in excess of 80% of the NO in the exhaust is currently under development for application to stationary combustion sources. It appears to be an economically attractive alternative to current exhaust gas treatment methods such as selective catalytic reduction, thermal de-NOx, and urea injection.